Research in Intermediate Energy Physics

Technical description of the project

This project addresses certain basic aspects of the electroweak and
strong interactions reflected in the properties of mesons and
nucleons (particles found inside atomic nuclei) and their
interactions at low energies. The strong and weak interactions are
responsible for the structure of matter at the smallest known
scale, a femtometer (size of the hydrogen atom nucleus) or less.
The research is motivated by the fact that the present
comprehensive theory -- the Standard Model (SM) -- is known to be
incomplete.

The rare "pi(e2)" decay of the pi-meson (pion) into an electron and
a neutrino, occurring once in about 10,000 ordinary pion decays,
provides a theoretically extraordinarily clean window to certain
possible extensions of the SM, at a very large mass scale not
directly accessible at any existing or planned accelerators. The
PEN experiment, with measurements carried out at the Paul Scherrer
Institute (PSI), Switzerland, by an international collaboration of
7 institutions led by the University of Virginia (UVa) group, aims
to improve the current pi(e2) branching ratio result by about an
order of magnitude. The data analysis is planned to be largely
completed during the current 3-year award period. Plans for a
possible follow-up measurement will be evaluated at that time.

A new project of precise measurement of neutron beta decay
parameters has been initiated at the Spallation Neutron Source
(SNS) at the Oak Ridge National Lab, TN. The first phase, Nab,
will focus on a precise measurement of the electron-neutrino
correlation parameter "a" and Fierz interference term, "b." Nab
should contribute (along with improved neutron lifetime
measurements) to a final resolution of a longstanding problem in
the determination of the ratio of axial and vector nucleon form
factors, G_A/G_V, and a nuclear model independent determination of
the Cabibbo-Kobayashi-Maskawa u-d quark mixing. Through their
precision, these experiments will explore interesting possible
extensions to the SM. It is planned that during the current 3-year
award period, Nab apparatus will be constructed and initially
tested.

As the work on PEN concludes, the group will tranisition to the
Muon g-2 experiment (E989) at Fermilab. The UVa group has
contributed to the detector design through Monte Carlo simulations,
is leading the Calorimeter Bias Voltage (CBV) project, and plans to
play a significant role in the data analysis. The CBV system is
planned to be completed during the 3-year award period, with
instrument installation to follow.

Broader significance and impact of the project

Common to PEN, Nab and Muon g-2, the three main experiments in this
research project, is the search for signals of new physics, not
included in the Standard Model of particles and fields. Each uses
its unique sensitivities to probe a hitherto unexplored region of
fundamental physics, and in doing so contributes to the overall
advancement of understanding of our universe at the most basic
level.

In addition to the basic science impact, there is the impact on
education of young scientists: a number of undergraduate and
graduate students have gained, and will continue to gain state of
the art training in research. Seven PhD and one MS degrees were
earned on this project during the past decade at UVa alone; a dozen
or more undergraduate students got extensive hands-on research
training, and have gone on to engaging careers. Several of these
students have been members of underrepresented groups in science
(women and minorities).